Enhancing the Cell Biology Curriculum at Austin Peay State University

The biology faculty are committed to improving the curriculum for biology majors in cell and subcellular biology. This project funds an ultracentrifuge and microcentrifuges to help the faculty achieve the next step to an improved curriculum. Integration of the new equipment into the program is outlined as two phases: (1) the implementation of new, investigative laboratory exercises that are not possible without the equipment and (2) involvement of more students in molecular research. Seven courses are significantly enhanced, including General Biology, Bacteriology, General Ecology, Genetics, Cell and Molecular Biology, Animal Physiology, and Plant Physiology.